EAGER: Creating a Book Citation Index

This project will conduct innovative research to demonstrate the potential of book citation analysis in navigating, analyzing and evaluating research progress, direction and impact. A hopeful result will be a comprehensive cartography of the scientific and scholarly research space associated with the content of these documents. The project also will extend the data-intensive inquiry beyond simple reference extraction to other structures and patterns in books. This will be done in collaboration with researchers at Indiana University, Leiden University, Netherlands and L'Université du Québec à Montréal, Canada. In pursuing its goals the project will use novel methods and large-scale data resources to explore prominent shortcomings in the overall structure and flow of scientific knowledge as it now proceeds in the internet-age. The Principal Investigator and his collaborators will leverage and modify work done by a variety of research groups in the course of this project in order to achieve their goals.